2006 Yamabe Memorial Symposium

Abstract

Award: DMS-0555016
Principal Investigator: Jiaping Wang, Robert D. Gulliver, Tian-Jun Li

The principal investigators propose to organize the third Yamabe
Memorial Symposium, with an emphasis on geometry and symplectic
topology, at the School of Mathematics of the University of
Minnesota from Friday to Sunday, September 22-24, 2006. The list
of speakers will include Denis Auroux, Yakov Eliashberg, Mikio
Furuta, Helmut Hofer, Dusa McDuff, Peter Ozsvath, Yongbin Ruan
and Ronald Stern.

Professor Hidehiko Yamabe (1923--1960) was an active and highly
collaborative mathematician in the School of Mathematics of the
University of Minnesota from 1954 to 1960. His sudden illness
and untimely death occured in the same year that he moved to
Northwestern University. His work on topological groups,
geometry and analysis were outstanding contributions to modern
mathematics. In year 2001, we proposed to enhance the Yamabe
Memorial Lecture by creating the Yamabe Memorial Symposium, a
top-level biennial geometry conference in the School of
Mathematics, University of Minnesota. Every two years, perhaps
in the Fall of even-numbered years, mathematicians will gather at
the University of Minnesota for a long weekend to hear geometry
talks, discuss the latest research and interact with graduate
students and junior researchers. In each biennium, a specific
area within geometry will be singled out for special emphasis.
One goal will be, as a way to honor the memory of Hidehiko
Yamabe, to advance areas of mathematics related to his interests,
which touched in a substantial and ground-breaking way on several
quite different areas of mathematics, all of which may be roughly
described as having significant geometric aspects. At the same
time, it will provide a valuable opportunity for graduate
students and junior researchers to interact with, and learn from,
mathematicians working at the highest international level.
Finally, a long-lasting benefit will be the stimulation of
innovative developments in mathematics research.

The conference web page is http://www.math.umn.edu/yamabe/.